Reactive Electrode Submerged Arc Preparation Of Fine Powders."

By far the common method of producing ceramic powders is by comminution. Laser and plasma arc methods are also being investigated to produce fine ceramic powder. A novel method of producing ultrafine ceramic powder (20-2000A) is proposed. The method is known as Reactive Electrode Submerged Arc (RESA) process and it involves striking an arc under a fluid, using metal electrodes of a metal which will react with the fluid being used. Thus, aluminum electrodes in water would form A1203, Si electrodes in NH3, Si3N4 will be developed for this process.